PARASOL: An Adaptive Framework for Parallel Processing

Parallel computers, particularly shared-memory multiprocessors, are now
widespread. However, programmers still have great difficulty exploiting
their potential to obtain good performance on real applications. Parallel
computing will only be truly successful when this difficulty is removed.
The investigators attack this problem by statically analyzing programs to
determine their structure, embedding run-time measurements to determine
their dynamic needs, and triggering adaptive optimization at run-time that
is tuned to those needs.

Technically, the investigators and their students plan to explore several
innovative techniques and/or combinations of known evaluation and
optimization techniques:

* Their compiler will insert adaptive capabilities directly into
applications, rather than going through a third party such as
the operating system. The application will then monitor its system
resource usage and control work based on its predicted demands
and the optimal workload of the system.

* They will use a parallel performance model for adaptive
optimization at run-time. The model will be used to both
predict execution times for potential optimizations and to
diagnose computational inefficiencies.

* They will implement run-time parallelization and optimization
techniques and integrate them in the POLARIS compiler and the
PARASOL system.

* They will use run-time parallelization to reduce the impact of
latency in the applications.